Mathematical Sciences: Principles and Applications of Nonlinear Dynamics: Research Experiences for Undergraduates Site

9619413 Stone This project will establish a Research Experience for Undergraduates Site at Utah State University with the theme being the Principles and applications of nonlinear dynamics. The site will run through the 8 week summer sessions of 1997, 1998, and 1999. The primary objective is to show young scholars the power of mathematical thinking in understanding their surroundings by taking advantage of the broad spectrum of problems of interest to the interdisciplinary community of researchers in nonlinear dynamics at Utah State University. The site will also make available a very unusual research opportunity for students of the Western region of the United States.